SBIR Phase II: Integrated Solution for Low Cost Distributed Wind Energy Generation

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project is in its strong potential to disrupt the small wind market, which to date has lagged behind solar counterparts. Through dual installation with solar on commercial buildings, the proposed roof-edge wind turbines will be able to deliver enhanced energy capture systems to buildings, with a shorter payback period, thus improving cost-efficiency and power potential, and attracting a broader body of adopters. By improving product offerings in the renewable energy sector, this technology has the potential to promote sustainable infrastructure, reducing reliance on and consumption of fossil fuels.

This Small Business Innovation Research (SBIR) Phase II project develops a roof-edge wind capture technology with commercial viability. The proposed distributed wind technology reduces costs by harnessing elevated wind speeds at the roof edge, optimizing powertrain architecture, and mitigating soft costs through sale to solar installers, who have already achieved significant market penetration yet would benefit from a diversified portfolio. The project aims to: 1) Prove the feasibility of integrating a Vertical Axis Wind Turbine into the system 2) Design for additional stakeholders, with respect to aesthetics, structural integration, ease of installation, and code compliance, while maintaining cost targets needed for scaleup 3) Design and test full powertrain architecture using components intended for commercial scaleup and 4) Build and test the full turbine for reliability and certification testing. These efforts will inform critical needs to address prior to large-scale commercial rollout, providing a strong foundation for translation as a reliable and cost-efficient distributed wind solution.